Instrumentation Development for the Atlas Experiment at the LHC

In this proposal, Professor Willis requests support for Academic Infrastructure through the ARI program. This infrastructure will enable the ATLAS collaboration, of which Columbia University is a member, to carry out prototype R&D for the ATLAS calorimeter as well as other detector components.